Magnetic Domain Wall Dynamics

The principal objective of the research is an improved understanding of the Bloch wall structure and substructure associated with magnetic bubble domains with major emphasis on dynamic effects which occur only when the walls are inm motion. Through a cooperative effort with Magnesys, a Bubble Memory Systems Company, this research effort will be integrated with their plans to achieve gigabit vertical Bloch line memory systems in the next decade. The study of wall dynamics will be carried out on (111) and (110)- oriented magnetic garnets as have been used, or proposed for use in bubble and Bloch line magnetic memories. Dynamic observations will be carried out on wall structures in bubbles which are in steady motion, achieved when a bubble moves in a uniform circular path under the influence of applied field gradients. These field gradients are produced by suitable conductor patterns, readily made in our laboratories. This experimental technique, developed at Purdue University, provides a unique method to determine details of the dynamical domain wall structure such as the number and sign of vertical Bloch lines.